Discrete Random Structures and Additive Number Theory

The research component of this proposal involves two overall
topics, which the P.I. has been investigating in the past few
years. The first is the study of random objects such as random
graphs, random matrices and random walks. This study is one of the
central topics in modern combinatorics with vital connections
several fast developing areas such as theoretical computer science
and statistical physics. The P.I. and his colleagues consider
several open questions about various models of random graphs,
with the main focus on random regular graphs. They also attack
several problems on random walks on graphs and the spectra of
random matrices. Some of these questions have high potential in
practice and are very exciting from the computer science point of
view. For instance, one of the key questions of the proposal is
to find a fast algorithm to generate a random graph. The second
topic of the proposal is additive theory. Here the P.I. considers
questions about the length of the longest arithmetic progression
in various sum sets. For instance, a typical question is the
following: Given m integers from 1 to n, what is the length of the
longest arithmetic progression obtained by the partial sums of
these integers. He also studies a fundamental problem about thin
basis, which went back to a problem posed by Sidon more than sixty
years ago. Here is a sample question: What is the smallest density
of a set P of primes so that every natural number can be
represented as a sum of at most 100 elements of P ?

Random objects such as random graphs and random walks have been
widely used to model real-life processes for a long time (think of
the movement of a particle, for instance). The newest and perhaps
most exciting example is the Internet graph, which has been
modelled as a random graph where the number of connections to each
node (site) satisfies certain laws. Therefore, the study of random
objects is not only theoretically challenging but also has high
potential in practical applications. A large part of the P.I.'s
work is to develop a better understanding of random graphs to
answer very fundamental questions such as "how does the graph
expand ?" or "how does the graph change if more edges
(connections) are added ?" or "how to simulate a random graph by
computers". Despite their simplicity, these questions have been
open for many years and their answers might require the development
of entirely new ideas and methods. The second part of the P.I.'s
work deals with classical questions in number theory, motivated by
results and questions of great mathematicians such as Waring,
Erdos, Freiman and Sidon. The work in this part would lead to a
better understanding of the additive properties of natural
numbers.